Two-Dimensional X-Ray Collimation Grid by Ion Beam Etching

9361195 Halverson A device called the Bucky Grid is widely used for enhancing X-ray images. The Grid allows primary X-ray radiation to pass through unimpeded while stopping scattered radiation from reaching the X- ray film and fogging the image. The Bucky Grid is limited in its use to diagnostic radiology applications for "spots" larger than one millimeter, making it unsuitable for mammography procedures. The proposed investigation would determine the feasibility of using ion beam etching and photolithography to create high- definition, high transmission grids with line widths less than 0.1 mm. Successful results from this investigation would lead to the development of a medical device that would reduce the level of X-ray power required to produce clinically usable images and offering the potential of use in mammagrapy procedures. ***